Plasma Heating and Energy Transport During Solar Flares

During solar flares large amounts of energy are released. The energy release occurs in three phases. The first phase is the precursor phase which is associated with slightly enhanced emissions and perhaps the emergence or rearrangement of magnetic flux. The second phase, the impulsive (sometimes called non- thermal) phase where the primary energy release occurs, is associated with the highest energy phenomena and a rapid increase in intensity and volume of electromagnetic emissions. The third phase is the gradual phase which is characterized by lower energy phenomena, a slow decay in the intensity of emissions and, sometimes, secondary energy releases. This grant will support the development of a self-consistent model for the propagation of energetic particles released in the impulsive phase of solar flares down into the lower corona and chromosphere, the outer corona and interplanetary medium during the gradual phase. The study seeks to provide a means for unifying existing models to produce a coherent and comprehensive picture of plasma heating and energy transport during solar flares. A knowledge of these processes is important for our understanding of mechanisms to accelerate or heat plasmas to high energies and of the plasma and energy flow in the chromosphere and corona. The results will provide a better basis for interpreting solar X-ray and radio emissions which will in turn provide new information for models of solar flares and similar high energy phenomena on other stars and planets. The solar flare is the most energetic, explosive phenomenon affecting the terrestrial atmosphere.